IUC: A Study of the Basic Characteristics of Submicron Gate-length Superlattice Stabilized Modulation-doped FET's Optimized for Improved MM-wave Performance

This industry/university cooperative research program is concerned with an understanding and improvement of the various structural and materials effects determining the performance of the modulation-doped FET's including their thermal stability and millimeter-wave power gains. For thermal stability, the conventional n-AlGaAs layer on GaAs buffer layer will be replaced by a short period n-GaAs/AlAs superlattice. This configuration will be used to achieve submicron gate-length MODFET's with optimized gate layer thickness to improve the device power gain stability margin at mm-wave frequencies. Additional design refinements will be incorporated to reduce the device output conductance and contact series resistances. Detailed electrical characterization and modeling of the improved MODFET's, first to support the structural design optimization process and then to extract the basic electrical and physical parameters that are indicative of the HF potential of the optimized devices will be performed.